Solution-Liquid-Solid Growth of Inorganic Materials

This new award to William S. Buhro at Washingon University is supported by the Advanced Materials Program in the Chemistry Division and the Solid-State Chemistry Program in the Division of Materials Research. The focus of the research is the development of the Solution-Liquid-Solid (SLS) crystallization technique as a general method for the low-temperature synthesis of nonmolecular inorganic solids. The primary feature of the SLS method is the dispersion of nonometer-size molten Indium or Indium/Gallium droplets in an organometallic precursor solution, from which the whisker crystals grow. Catalyzed organometallic reactions occur at the droplet-solution interface, depositing the products into solution in the droplet. The droplets become supersaturated, driving whisker growth. The specific goals of the research are to (1) establish the detailed mechanism of SLS growth, (2) gain control of nanowhisker sizes and produce narrow size distributions, (3) gain control of nanowhisker compositions in ternary systems, (4) investigate fabrication of heterostructured nanowhiskers, and (5) assess the generality of SLS growth to the synthesis of III-V nitrides and II-VI chalcogenides. This research will explore the mechanism and scope of a new low-temperature route to solid state materials limited by chemical and surface reactivity compared to traditional high temperature methods which are limited by precursor volatility. Since the new method is kinetically driven, new solid phases can be expected. Solid state nanowhiskers of controlled composition and size are likely to be useful in electronic and optical applications.